Shipboard Scientific Support Equipment

ABSTRACT

09 July 2009
Proposal Number: 0943538
Institution: Scripps Institute of Oceanography
PI: B. Appelgate
Co-PI: T. Althouse

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

The proposal requests numerous Shipboard Scientific Support (SSSE) items for the vessels operated by Scripps Institute of Oceanography; namely the R/V REVELLE, MELVILLE, NEW HORIZON, and SRPOUL. The requests specifically include items that have been recommended from past NSF inspections, Navy INSURV's, or Post-Cruise Assessments (PCA's) and have been otherwise deferred by the operator due to cost. All of the items requested will either improve safety, enhance science support capability, or extend vessel service life. Due to the nature and timing of these requests, the vendor quotation standards normally required by the SSSE Program were waived out of necessity with many of the figures provided as estimates for budgetary purposes and based mainly on past experience of the vessel operators for similar work.

Broader Impacts: Scripps vessels support federally funded scientific research throughout the world's oceans and routinely expose graduate and undergraduate students to seagoing oceanography. Scripps participates in a large number of outreach programs including open house events, student tours, and hosting of government officials, dignitaries, and science communities while in foreign ports. All told, Scripps vessels are scheduled to complete over 420 NSF sponsored days in 2009.